Instrumentation for an Undergraduate Materials Science Laboratory

The physics department is significantly modifying and improving its advanced physics laboratory by introducing new experiments which integrate materials science and new technology concepts presented in lecture courses, use modern equipment, and employ computer interfacing. The new experiments are grouped in three areas: Thin Film Technology, Ultrasonics, and Modern Optics. Many of the new experiments are interfaced to computers so that computer control of both equipment and experiments is an essential component. This laboratory enables students to perform timely experiments using techniques that are similar to those being used at the research and technological forefront. The university is matching the award with an equal amount of funds.